Continuation and Extension of: Analysis of Multiple Degrees of Freedom Forced Ship Rolling Using Geometric Analysis

9402566 Falzarano This project deals with the analysis of multiple degrees-of freedom on forced ship rolling using geometric methods. The major emphasis of the project is on the coupling effect of other motion modes on the critical roll motion leading to improved dynamic models. Analytical techniques used include Poincar maps, invariant manifold intersections, Melnikov vectors and lobe dynamics. The effects of yaw coupling on sway and roll are also considered. Systems of dimensions greater than three are considered and a development of decoupling and projection techniques is emphasized which allows visualization in lower dimensional spaces without neglecting significant dynamic details. Slowly varying systems and nonlinear normal modes are utilized for computer simulations. ***